An Advanced Light Microscopy Facility

Support is requested to develop an Advanced Light Microscopy Facility (ALMF). The nine major users and two minor users are currently using epi-fluorescence microscopy to investigate a wide range of basic problems in cell and molecular biology. The video analysis system will provide the ability to view cells and subcellular components using differential interference contrast video-enhanced-contrast microscopy (VEC). This will bring a new perspective to studies of cell movement, cell-cell association, cell-substrate association, and subcellular fractionation. This system will also provide facilities for quantitative analysis of fluorescence intensity, morphometric analysis, and 3D reconstruction. Programs for training in advanced techniques of light microscopy for both users and their students are an integral part of the ALMF. The facility will provide video transmission to classrooms for teaching and seminars and it will connect to campus and national networks for transmission of digitized images.